U.S.-Japan Symposium: Cellular and Molecular Action of Steroid Hormones in the Brain/April 1994/Honolulu/Hawaii

9315369 Terasawa This award supports the participation of 13 U.S. scientists in a U.S.-Japan Seminar on Cellular and Molecular Action of Steroid Hormones in the Brain, to be held in April 1994 in Honolulu, Hawaii. The co-organizers of the seminar are Professor Ei Terasawa, Wisconsin Regional Primate Research Center, University of Wisconsin-Madison, and Professor Seiichiro Kawashima, Institute of Zoology, University of Tokyo. In addition to the scientists from the United States and Japan, there will also be participants from Canada and France. The research topic is very important and timely. The focus of the meeting is on recent progress in understanding the mechanism of action of gonadal steroids. Gonadal steroids influence neuronal cell differentiation, migration, and survival during the prenatal and perinatal period and therefore affect various brain functions, including cognitive function in later life. Gonadal steroids are also essential for maintenance of reproductive function and reproductive behavior. The seminar participants represent a broad range of expertise using a number of model systems and approaches. There has been no recent meeting that addresses this issue in neuroendocrinology. Thus, the seminar brings together a diverse set of outstanding researchers to present an update on an exciting and important area in neuroscience. ***